Engineering Research Equipment Grant: A High Speed Interconnection Network of Microprocessors

An interconnection network of microprocessors will be provided for researchers at the University of Pennsylvania for research in the Department of Electrical Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the study of routing strategies for broadband networks.